Acquisition of a Scanning Electron Microscope.

This proposal requests funds for the purchase of a scanning electron microscope with x-ray microanalysis attachment. The microscope will be part of the Electron Microscopy Center which provides ultrastructural research facilities for users from almost every science department, institute, and college, including the College of Engineering and Departments of Biology, Chemistry, and Geology. Primary users are from the Departments of Biology/Marine Science, Geology, and Physics and the College of Engineering. The principal investigators, Director of the Electron Microscopy Center, has a productive research record. The user group, a number of whom have NSF grants, is also quite productive. Support is recommended.